Second INCO-TRUST Workshop

The goal of the workshop is to foster long-lasting international
scientific collaborations to investigate the scientific foundations, design, and feasibility of a future
international cyber architecture. Such an architecture must allow for transnational data repositories
and be capable of enforcing both today's and future diverse security and privacy policies. Topics to
be addressed may include, among others, how to determine whether a set of privacy or access
control policies is consistent, whether it can be efficiently enforced, and if so what techniques are
most effective. Different data exchange applications will require tailored mechanisms that allow for
security, privacy, anonymity, and provenance to be maintained. Of particular interest are (1) data
concerning malware detection (attack signatures, number/pattern of compromised systems, botnet
membership, vulnerability pricing data, etc.), (2) network management data (traffic patterns,
headers, routing updates, etc.), (3) social network data (usage patterns within social networking
applications, status of data posted within these applications, etc.), as well as data from other
domains such as (4) healthcare data (electronic health records, including images, diagnostic notes,
laboratory reports, etc.), and (5) financial data (individual transactions, interbank transfers, credit
reporting, etc.).The workshop will consist of several keynote talks, panels, and breakout sessions.
In addition, information will be presented about funding opportunities to support international
research collaborations.